Combined Radiative Transfer and Dynamic Light Scattering Technique for Characterization of Dense Liquid/Particle Suspensions: REU Supplement

This research will measure average and time correlated light scattering from dense suspensions of particles whose refractive index can be made larger than, equal to, or smaller than the refractive index of the suspending fluid with modest changes of temperature. This permits examination of a single suspension having fixed dynamic properties from the transparent or "single scattering" regime to the opaque or multiple scattering regime. It thereby offers a unique opportunity to evaluate critically assumptions used in theoretical treatments of light scattering in dense suspension, in particular the diffusive wave theory for dynamic light scattering. A theory for scattering will be developed from the radiative transport point of view. Concentrated suspensions are encountered in a variety of engineering applications including paints, slurries, fluidized beds, and ceramics precursors. Non-intrusive optical techniques are needed for product characterization and control in the processing of such suspensions.